High-Performance Transaction Systems

This work covers two main areas of research in high performance transaction systems: structures for integrity and concurrency and models for analyzing and simulating such systems. The first area is concerned with methods for guaranteeing integrity, recoverability and high performance for transactions having long duration and user interaction. A new level of concurrency control has been introduced to provide a transaction-like session that would have these properties, but that would not degrade performance and availability as much as a true long duration transaction would. A language for defining and manipulating this new level of concurrency is being developed. This language will be implemented on an elaborate network emulation that has already been developed. The second part of the proposed research concerns the problem of modelling the performance of concurrency control and buffer management algorithms for database systems. A new stochastic model of data access has been introduced. This model reflects the observed behavior of real database systems better than the existing models. Although access to data granules is highly nonuniform, this new model is analytically tractable and easy to simulate. A prototype simulator has already been developed, and various buffer and cache management algorithms are being tested.